Photonuclear and Fundamental Particle Physics

Studies of CP violation, photoproduction of the 3-3 resonance, and the muon anomalous magnetic moment (g-2) will be carried out. The CP violation work will be carried out at CERN/LEAR using tagged, neutral kaon and anti-kaon beams to help determine the source of known CP violation. BU will provide the time-of-flight system for that experiment. Photoproduction of the 3-3 resonance will be studied in hydrogen and in nuclear systems through photon scattering, neutral pion photoproduction, and pion capture reactions. The emphasis will be on measurement of coherent production and scattering, for which there is a well developed isobar-hole theory. The muon anomalous magnetic moment will be determined to 0.3 parts-per-million accuracy. At this level of sensitivity, a 20-fold improvement over existing data, it is possible to test the unified electroweak theory. Deviation from the predictions of the standard model will indicate the existence of new physics.